Instrumentation for Plasma Physics and Vacuum Science-Based Upper Division Experimental Physics Course

The physics department is creating an upper division experimental physics course for physics majors that will give each physics major an opportunity to do experiments with up-to-date instrumentation in the area of basic plasm physics and vacuum science. The creation of such a course constitutes a major improvement in the quality of the Physics Bachelor's Degree program. The instrumentation includes a vacuum system built around a 325 1/s diffusion pump. Electronic equipment (Lockin Amplifier, Boxcar Integrator & Computer Interface (GPIB) and electrostatic probes (Langmuir Probes, Gridded Energy Analyzer) permit fundamental plasma parameter measurements, including plasma density and electrostatic potential, electron and ion temperature and distribution functions. Ion acoustic wave, ion beam, and chaotic dynamics experiments are being performed as well. The instrumentation also includes a digital storage oscilliscope which is integrated with an IBM PC/AT compatible computer for data acquisition and analysis. Communications Software provides access to the University's VAX computers for off line data analysis. The University is matching the award with an equal amount of funds.